Large scale topology of metric spaces

Large scale topology of metric spaces

The project is dedicated to the large scale geometry and topology,
a relatively new interdisciplinary subject which studies very large
scale properties of a space. It is opposite to the classical topology
which is a science of small scales, since it is based on the notion
of a continuous transformation which is local by the definition. The project
is devoted to the large scale counterparts of the following
classic topics of topology: Dimension Theory, Cohomology Theory, Theory
of Embeddings. Among the research problems selected for the project are:
The quest for a large scale analog of Morita theorem that states that
asymptotic dimension increases by one after crossing the space with the reals;
the quest for the asymptotic analog of Alexandroff theorem connecting
cohomological approach to dimension to geometric one; and a problem
of quasi-isometric embedding of discrete groups into the product of trees.
One of the main goals of the project is potential
applications to the Novikov Higher Signature Conjecture and some
other related conjectures.
The classical topology has the century long history and now it
is substantially developed in all directions. Its long and painful
birth at the end of 19th and beginning of 20th centuries was inspired and
pushed by the progress in natural sciences and mathematics, in particular
in analysis. By the end of the 20th century in many areas
of mathematics the necessity appeared for a discipline which would be
similar to topology and which describe behavior of the large scale world.
Such a discipline started to hatch in a last decade or so.
This proposal is a further push for rising of such a science.
There are already many connections between the asymptotic topology
and applied disciplines. Thus, a part of this project is
the study of the connection between large scale embeddings into the product of
trees and aperiodic tilings and hence the quasi-crystals.
Another connection is to the computer science. It turns out that
the asymptotic infinite dimensionality
of certain sequence of graphs would give the foundation for PRA
("product replacement algorithm") which is a noncomutative version of Gauss
elimination algorithm. It is known that PRA works well in all instances but
still it lacks a rigorous mathematical justification.
Developing of the asymptotic dimension theory up to the task
is the heart of the proposal.